Fractional Imputation for Missing Data in Social Surveys

DMS - 0532413
NSF PROGRAM: Mathematical, Social, and Behavioral Sciences
Institutions: Iowa State University
Principal Investigators and co-PIs: Larsen, Michael D., Kang, Shin-Soo, and Lorentz, Frederick O.

Title: Fractional Imputation for Missing data in Social Surveys

ABSTRACT

Missing data are a serious problem for practically all large-scale
surveys and research projects in the behavioral, economic, health,
and social sciences. Analyzing only the complete cases reduces sample
size, often introduces bias, and ignores information concerning
relationships among variables. Substituting single values for the
missing observations produces a complete data set, but treating the
completed data as if they all were real leads to an overstatement of
precision and, potentially, unwarranted conclusions. Multiple and
fractional imputation are methods that replace each missing value
not with one but with multiple, say five, plausible values. Results
from separate analyses using the multiple completed data sets are
combined according to theoretically derived rules. Of concern is
the performance of multiple imputation methods when sampling from
a finite population and when sample sizes are moderate to small.
Recent theoretical work by Kim (2004) and Kim and Fuller (2004)
ntroduced fractional imputation (FI) and elucidated a shortcoming
of multiple imputation variance estimation. A number of extensions
to their work are feasible and expected to increase greatly the
usability of FI by researchers in the behavioral and social sciences.
Models for missing data can help reduce or eliminate bias and maintain
statistical power by utilizing relationships among variables.
FI provides a way for researchers to calculate valid standard errors
and resulting confidence intervals and hypothesis tests. In order
for researchers in the behavioral and social sciences to use FI to
its full advantage, development of FI for categorical data, mixed
continuous and categorical data, and general missing data patterns
is needed.

Missing data are a serious problem for many research studies in the
behavioral, economic, and social sciences. When respondents do not
provide the desired data, subsequent analyses can be biased and
less precise. Frequently researchers simply ignore the fact that
some observations are missing and report results based on those
that are observed. Although expedient, this is not a recommended
procedure. In the Family Transitions Study, imputation for missing
responses from men and women have been very important for maintaining
sample size and statistical power. Another common response to
missing data is to impute or fill-in the empty space with a
substitute value. Values can be donated from observed similar
individuals, predicted through a model, or handled implicitly
through nonresponse weighting. These methods, if implemented
appropriately with adequate data, can reduce bias. Unfortunately,
single imputations if treated as real can lead to understatements
of uncertainty. Multiple and fractional imputation methods have
been developed to reflect uncertainty due to missing information
and aim to allow researchers to both correct for bias due to missing
information and reach valid conclusions based on the observed data.
The development of theory, methods, and procedures for fractional
imputation of missing values will greatly enhance the applicability
of fractional imputation to problems in economic, behavioral, and
social sciences. Study of missing data, its causes and effects and
possible remedies, is critical for the maintenance of the high
quality of the Family Transitions Project study and for long-term
research studies at the Mayo clinic.